The Application of Optical Disc Technology for Archiving Large Meteorological and Oceanographic Data Sets

"The Application of Optical Disc Technology for Archiving Large Meteorological and Oceanographic Data Sets" The goal of this project is to explore the feasibility of using compact discs as a medium for the storage of large data sets that can be used on a variety of computer systems ranging from microcomputers to superminicomputers. The project is part of the UNIDATA (University Data) program, a community initiative designed to help universities employ modern computing and networking technologies to access, analyze and display atmospheric and related data. Under a previous grant, the Principal Investigator was successful in creating several compact discs which are undergoing initial testing in the community. The major activity under this award will be the development of the necessary interfaces with the UNIDATA Local Data Management System so that compact discs can be used on a variety of local computer systems. This project is important to atmospheric scientists who routinely deal with voluminous data sets in their research. The compact disc technology offers the potential for as an inexpensive, reliable, and efficient means of data access.